SBIR Phase II: Multi-Sensory Therapy To Improve Lives of Children with Autism Spectrum Disorder

This SBIR Phase II project will develop a multi-sensory social skill program to improve the lives of children who have been diagnosed with autism spectrum disorder (ASD). Currently, ASD is the fastest growing developmental disability in the US, with 1 in 59 children being affected. It is well established that children with ASD struggle with their social skills, which negatively affects the child's ability to make friends and integrate into the community and create their best life. Current interventions are expensive, time consuming, and parents, teachers, and therapists are seeking better solutions. This project will address these issues through the development of an affordable, time efficient application. The application will greatly improve social skills while also addressing sensory integration, anxiety, and self-esteem. As research continues and the product is refined, it will be broadened to all ages, targeting the ~5 million individuals with ASD in the US, and the ~74 million worldwide. Additionally, this project can be adapted to help non-ASD children who struggle with social skills or have developmental disabilities. Using the program in both homes and schools, creates a strong commercial impact, leading to a self-sustaining business.

The technical innovation of this project is an educational application developed for smart mobile devices, improving social skills for children diagnosed on the autism spectrum. This novel technology incorporates and combines proprietary source code, customizable features, integration of original music, video, facial recognition technology, and tracking tools to create a powerful modeling, learning, and practicing environment. The technology is the only social curriculum designed to allow students to learn and practice the social skill independently, or with other human interaction; including the ability to have multiple devices sync together, allowing practice to take place between participants in real time. The research goal is to develop and test an application, which teaches children with autism spectrum disorder to improve and generalize social skills to familiar and unfamiliar people. This will be accomplished through software development, which will include integration of video and music, testing for program glitches, compatibility with various devices, and technology that can be implemented in a one-to-one or group setting. A pilot study will include an intervention vs. control design to assess the effectiveness and user ability of the program with students in grades K-6 with varying degrees of autism, thus validating the need and effectiveness of the program.